A Hispanic Scientist Development Pilot Program to Broaden Hispanic Undergraduate and Graduate Participation in the NSF Science and Technology Centers

OIA-0333655
Flores
Hispanic Association of Colleges and Universities

The Hispanic Association of Colleges and Universities (HACU), a national, non-profit organization, representing more than 300 colleges and universities across the US and Puerto Rico, provides a voice that articulates complex policy issues on and conducts national programs to champion Hispanic success in higher education. One such program, the National Internship Program has developed a long and distinguished record of providing summer internship opportunities for over 3,000 students in the federal and private sectors since its inception in 1992.
Building upon the success of the internship program for undergraduate and graduate students, HACU will implement a pilot Hispanic Scientist Development Program to nationally recruit students to participate in research and educational activities at the NSF-sponsored Science and Technology Centers (STCs). Besides providing a rich atmosphere for encouraging future scientists and engineers, STCs conduct innovative, world-class research of national importance, that promise to contribute to the Nation's competitive potential through discovery and education. The HACU-STC partnership will offer a significant number of under-represented students the opportunity to participate in STC-based research. Consequently broadening the participation of all citizens, and enhancing diversity within NSF's programs in regards to the Foundation's strategic goal of People, Tools, and Ideas.